Workshop on Emerging Technologies for Interconnects

The shift to an ever-increasing number of processing cores--within a
single socket in consumer devices and across multiple sockets in
servers--has brought interconnects to the forefront of the challenges
facing the computing industry. While evidence suggests that
alternatives to conventional metal interconnects will be needed to
meet future performance demands and power constraints, research in
these areas has been largely limited in scope to specific areas of the
computing stack, and little progress has been made across problem
sub-domains. Thus, there is a dire need for holistic research efforts
spanning the stack from physics to systems, and that produce
prototypes and development tools that are of much greater
sophistication than exist today in order to enable commercial
adoption.

The Workshop on Emerging Technologies for Interconnects will bring
together key researchers, industry developers, and program managers in
order to define an agenda for the research and commercial adoption of
emerging interconnect technologies. Presentations and discussions on
the "state of the state-of-the-art" of emerging technologies for
interconnects will be followed by break-out sessions and discussions.
These sessions will identify and articulate the key research
challenges, and potentially most promising solutions/directions, and
chart the recommended larger-scale national strategy and research
agenda. The broader impact will be the elimination of the key